Instrumentation for a Biotechnology Center to Enhance Undergraduate Education

This project is establishing a Center to address pressing needs in the undergraduate program at different curricular levels. As a result, General Biology for majors now addresses entry-level molecular biology concepts in their laboratory. Molecular biology technologies are also being added to core courses such as cell biology, genetics, and immunology. The Biotechnology Center provides a well-equipped and centralized laboratory that is shared by students in several courses. The Biotechnology Center is also a valuable resource for undergraduate students pursuing independent research projects. Finally, the Center enhances the department's teacher training program by providing a nucleus for summer courses in biotechnology for pre-service and high school teachers.